Mathematical Issues in the Modeling and Simulation of Self-Consistent Charge Particle Transport

This research concerns mathematical problems in the theory
of self-consistent charged-particle transport systems at different scales.
Of particular interest is to address the mathematical issues in kinetic
transport under strong forcing (a high built-in electric field due to
inhomogeneities of the flow region), and the hierarchy of anisotropic
hydrodynamic models derived under these conditions. These models arise
naturally when non-equilibrium current flow in heterogeneous structures
such as semiconductor devices is studied. Similar models are used to describe
biological transport in ionic channels, due to significant electrical activity through
cellular membranes. One of the new aspects of the planned research is the
mathematical and computational understanding of transition layers
that involve the linking of scales through kinetic and macroscopic levels for
transport models, both under low and high electric field effects. In both
cases, analytical studies are to be complemented by numerical simulation
of solutions of the corresponding model equations.

This research addresses mathematical models that are used to describe
electron and ion transport in semiconductors and in biological membranes.
One of the main challenges comes from the fact that in these phenomena, processes
that occur at very different length and time scale are coupled and influence
each other. The mathematical work will lead to faster computational methods
for the simulation of such phenomena which are at the same time more accurate.
Technological areas which are as different as microelectronics and pharmacology
will ultimately benefit from this work.